Special Year in Topology and Dynamical Systems at the University of Florida 2001-2002

DMS-0108949
James E Keesling and Alexander N Dranishnikov

This award provides partial support for active research mathematicians
with limited means of support to attend and participate in the
Special Year in Topology and Dynamical systems at the Univeristy of
Florida, 2001- 2002.
The main speakers are John Milnor who will give the Third Ulam Colloquium
during the year. Sergei Novikov will give the Third Erdos Colloquium talk
during the year. In addition the following people have agreed to give
series of talks in their fields of expertise: Mladen Bestvina, Steve Ferry,
John Franks, Michael Gromov, Konstantin Mischaikow, Michal Misiurewicz, De
Witt Sumners, and Lai Sang Young.

Further information is available at the following website which will be
regularly updated http://www.math.ufl.edu/~jek/SpecialYear.htm